New Methods in Stereoselective Synthesis

The focus of this work is the development of Ru- and Mo-based chiral catalysts for enantioselective metathesis. Polymeric Ru-based complexes that readily promote metathesis reactions and can be easily recovered will be prepared. Chiral Ru-based catalysts will be among those to be studied. Chiral Mo-based catalysts will also be developed to be used in concert with Lewis acid co-catalysts. The Mo-based complexes will be used to develop asymmetric catalytic ring-opening metathesis processes.

With this renewal award the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Amir H. Hoveyda of the Department of Chemistry at Boston College. Professor Hoveyda will focus his work on the development of synthetic methodology for the catalytic preparation of optically pure compounds. Within this context, catalytic asymmetric metathesis reactions will be the focus. The broad potential for the synthesis of complex molecules makes the work important to the pharmaceutical and agricultural industries and provides an excellent for the training of graduate students.